Dissertation Research:Experimental Analyses of Biotic Inter-actions Between Larval/Juvenile Fundulus heteroclitus (Kill-ifish) & Palaemonetes pugio (Grass Shrimp) in Refuge Habitat

This study investigates the nature of ecological interactions of two taxonomically disparate organisms sharing refuge habitats during early life history stages. Laboratory and field experiments will examine interspecific processes of competition and predation and their interactions between populations of larval fish (Fundulus heteroclitus) and postlarval grass shrimp (Palaemonetes pugio) which co-occur on vegetated saltmarsh surfaces in shallow aquatic microhabitats. Both species exhibit rapid declines in numbers following concurrent peak recruitment of juveniles onto intertidal marshes. Density-dependent intraspecific and interspecific effects on survivorship and growth rates will be the focus of this research. Interspecific competition, resource depletion, and indirect effects on meiofauna will be examined in laboratory microcosms. Field experiments using enclosures on the vegetated intertidal marsh will assess predation and interspecific competitive effects. Understanding biotic interactions in this system should contribute to a broader understanding and appreciation of the role of interspecific interactions on recruitment variability affecting critical early life history stages of organisms.